Gas Chemistry and Kinetics of Serpentinization Processes

9402507 Berndt In this project the P.I.s will conduct an experimental study to investigate methane production and serpentinization over a wide P,T and fluid composition range. Their results will have a bearing on methane production and serpentinization in subseafloor hydrothermal systems and C-cycle in oceanic environment.